Theoretical Nuclear Physics

This project will carry out basic research in theoretical nuclear physics on a range of topics of current interest including solar neutrino physics, fragmentation in nuclear collisions at intermediate energies and analyses of heavy-ion scattering phenomena.